Equipment: MRI: Track 1: Acquisition of a White-Laser Confocal for Multi-Disciplinary Research in the State of New Mexico

New Mexico State University (NMSU) is receiving an award to obtain a white-laser confocal microscope, advancing imaging capabilities for the region. The white-laser system will allow researchers to get faster and more accurate images. The white-laser confocal will elevate science and engineering research at NMSU by enabling a wider range of imaging capabilities and enhancing data analysis. By expanding regional access to white-laser imaging, this instrument will support research and training that would not otherwise be possible locally. As part of a shared microscopy core, the instrument will be available on a fee basis to researchers and companies across NMSU and the broader region, extending access beyond individual labs. The system's main advantage is its ability to cleanly separate signal from noise, using both the light source and the enhanced sensitivity of its detectors. Together, these features allow for simultaneous acquisition of multiple signals where previously this would be hard to separate. This instrument will be key to training a STEM workforce in advanced image capture by providing hands-on experience with cutting-edge microscopy in both STEM courses and free public workshops.

Faculty whose research programs require advanced fluorescence microscopy, particularly in the fields of cell biology, neuroscience, biosciences, and environmental science, are currently limited by the lack of an advanced imaging and analysis system. The proposed acquisition of a white light laser (WLL) confocal microscope would bolster research and student training in New Mexico and the surrounding region. The system is equipped with a pulsed laser offering imaging advantages not found on other microscopes in the region, notably the ability to optimally excite a fluorophore at its peak excitation wavelength and to deconvolve fluorescent signal based on time of arrival, opening new avenues of research and analysis. Housed in a highly utilized core facility managed by the NMSU Research Cores Program (RCP), the WLL confocal will immediately support users from NMSU and neighboring institutions. This project aligns with the NSF’s biotechnology priority area and it enhances the research competitiveness of an Established Program to Stimulate Competitive Research (EPSCoR) jurisdiction.